Partial Differential Equations and Fourier Analysis

The main goal of this project is to describe equilibrium solutions to
boundary value problems for linear and nonlinear elliptic partial
differential equations. The PI intends to prove existence and
regularity theorems for two-phase free boundary problems. The PI will
also describe level sets of eigenfunctions, especially nodal sets,
maxima, and minima, and find optimal bounds on the shape of level sets
for convex domains even if the domain becomes long and thin. Another
goal is to solve a problem in mathematical economics of finding all
possible functional forms of a price-independent social welfare
function (using methods of exterior algebra and overdetermined
systems). A third goal is to characterize the camera image of a
building using the Fourier transform, that is, to characterize the
distortion of the periodic pattern on the face of the building if the
building is not exactly parallel to the camera.

The PI plans to describe the equilibrium between two phases in several
problems arising in physics and engineering. The focus will be on the
boundary between two materials such as ice and water. Other examples
include the boundary between two liquids and the profile of the wake
of a boat. In another direction, the PI will attempt to confirm a
principle first proposed by J. Rauch that the point of maximum
temperature in an insulated room tends towards a wall as time
increases. More generally, the PI will examine how the geometry of a
fixed boundary (as in the walls of a room) affects the shape of
surfaces of equal temperature at or near the equilibrium steady state
temperature. In a third direction, the PI will try to find all
possible price-independent social welfare functions. This is of
current interest because such functions are used to compare countries
and to describe the trend towards greater income inequality in the
1990s in the U. S. as well as earlier trends in the opposite
direction. The problem is that prices cannot be held fixed in such
comparisons. The PI expects that price independence puts serious
limits on the functional forms allowed, which in turn puts limits on
the way comparisons can be made. Finally, the PI proposes a project
intended to help solve the problem in computer vision of recognizing
the orientation of a building from a photograph.